Brains for Intelligent Buildings Under Seismic Loads

9361511 Zheng This proposal conducts feasibility study for the development of a microprocessor which will become the brain for intelligent buildings (BIB). The brain discerns the state of the building by evaluating signals from the sensor network and issues appropriate commands to active and passive controllers to moderate the effects of seismic disturbance. The BIB will merge two technologies, (i) active pattern recognition and analysis and (ii) adaptive fuzzy logic control using a dynamic knowledge base. These methods can respond to the dual needs of such a processor: inference under uncertainty and adaptability to change. Uncertainty is the result of stochastic disturbance, noise, incomplete sensor data, or fuzziness of information. Change occurs during extreme hazards but also from deterioration of the building, its sensor network, and actuation systems over time. The proposed design has innovative features. Via active pattern recognition process, BIB interacts with the building to probe and monitor its operating state. Dynamic, adaptive control module has two sets of meta rules that adjust control rules according to environmental conditions. By incorporating fuzzy logic, BIB leverages any tolerance for imprecision into simplicity in design and hence gains in efficiency and lower costs. The study through software simulation will focus on its performance in extreme events and address BIB's reliability to degrading sensors and actuators. This is an SBIR Phase I project. ***